Social Organization of Foraging by Honey Bees

The goal of this research project is to better understand how a well-coordinated division of labor is accomplished in insect societies, by analyzing the mechanisms devised by natural selection for the coordination of labor groups (castes) within the honey bee society. Dr. Seeley will examine three distinct operations in honey bee colonies that require the joint activity of two castes, and will aim to determine for each operation how information flows between the castes so that their rates of activity stay in proper balance. The three operations are nectar acquisition, nest thermoregulation by evaporative cooling, and comb construction. This research addresses a fundamental problem faced by any organization in which there is division of labor, namely the coordination of interdependent labor groups within the organization. This is a severe problem when one group must adjust to unpredictable changes in the activity level of a second group. For example, in the case of the bees, whenever the weather turns hot and the hive begins to overheat, bees working inside the hive spread more water for cooling and bees working outside the hive must accordingly increase their water collection. The solution is the creation of various lines of communication between the groups. These communication links are not well understood for animal societies, even those such as the honey bee society where it has long been known that there is an elaborate division of labor. Hence this research will address an important gap in our understanding of how intricate animal societies work, and it may well provide ideas on how to better coordinate labor in human organizations.